Supporting for US HE Physicists to attend 41st Rencontres de Moriond Conferences

The Moriond Conferences are organized by leaders in the field of high-energy physics, and the subjects chosen are topical and broad. The topics of the two sequential 41st Rencontres de Moriond are: (1) Electroweak Interactions and Unified Theories, and (2) QCD and High Energy Hadronic Interactions. The Conferencs will be held in La Thuile, Aosta Valley, Italy, March 12 - 25, 2006. Currently, U.S. Particle Physics is in a leading position in the world, with the majority of new and important results in the field coming from BaBar, CDF, CLEO, DO, PHENIX, STAR, and several other U.S. experiments, as well as from the associated theoretical research. Partial support for travel and registration will be provided through this program, to allow young high energy physicists from the US to participate.